Nuclear Magnetic Resonance Spectroscopy for Improving Under-graduate Chemistry Laboratory Capabilities

The objective of this project is to provide undergraduate students at the University of Wisconsin-Stevens Point with modern instrumental capabilities necessary to support both laboratory coursework and student research projects. A Fourier transform nuclear magnetic resonance spectrometer will be used by undergraduates for laboratory coursework in advanced organic, advanced inorganic, analytical, physical, and polymer chemistry. In addition, a number of students will use Fourier transform NMR techniques in their research projects.